Partial Order Transport Service

9314056 Amer Motivated in particular by multimedia applications, a Partial Order Connection (POC) service/protocol is proposed for end-to-end communication. Unlike classic transport services that deliver objects either in the exact order transmitted or according to no particular order, POC provides a service that requires some, but not all objects to be received in the order transmitted. Two versions of POC are proposed: reliable, which requires that all transmitted objects are eventually delivered, and unreliable, which permits the service to control the loss of a subset of the objects. In the unreliable version, objects are more finely categorized into one of three reliability classes depending on their temporal value. Further understanding of POC is accomplished by using Estelle (ISO Standard 9074) and Estelle development tools to formally specify a protocol that provides POC service. The expected performance gains of a POC service will be studied both analytically and with an OPNET simulation. To be studied are the expected memory/bandwidth/delay performance improvements using POC when compared with an ordered service for various combinations of: (1) different partial orders and loss tolerances, (2) different distributions of disorder and loss supplied by the underlying service and (3) different sized sender-receiver buffers. ***